International Conference on Complex Systems, June 9-14,2002.

0211048
Bar-Yam

There is a new and growing effort to understand complex systems and
complexity that has stimulated widespread interest in the scientific
community. This grant will enable the participation of students,
postdoctoral fellows and and other junior scientists in the
International Conference on Complex Systems (ICCS). Sessions will
focus on unified conceptual and mathematical strategies and their
applications to physical, biological and social systems. The
conference includes pedagogical sessions for students and topics of
interest and concern to the public that will serve as vehicles of
education and communication for a broader audience. A special
topical day will address recent advances in the study of evolution
and several sessions will focus on biocomplexity, ecology and
multiscale patterns coupling biological, physical and social systems.
Various conferences and workshops have addressed aspects of these
growing efforts to understand complex systems. However, the ICCS
is the only major international conference series to bring the wide
diversity of research together, demonstrating the interdisciplinary
yet integrative and coherent nature of these efforts. This conference
series is organized by the New England Complex Systems Institute
(NECSI).